Atoms Near Surfaces

This project is a continuation of an experimental investigation of long-range forces between neutral atoms and condensed matter surfaces. Attention will be directed toward (a) trying to resolve a discrepancy between theory and experiment on the strength of the van der Waals force between ground state neutral atoms and conducting surfaces and (b) examining major features in the current theory of atom-surface forces.